NPT2 -- Building a Technologically Advanced Pulp, Paper , and Allied Industries Workforce and Contributing to the Development of the Nation's Renewable Energy Capacity

The National Network for Pulp and Paper Technology Training, with four regional nodes and 15 community colleges, provides the pulp and paper sector of the US forest products industry with a globally competitive, technologically advanced workforce through recruiting, retaining and placing students; developing and implementing standards, certificates, curriculum and professional development; and disseminating products to other community colleges. The National Network increases outreach to employers, professional organizations, colleges and high schools including the development and approval of standards and certifications. The curriculum is expanded to include standards, curriculum materials and professional development that emphasize the wood-based renewable energy used in pulp and paper mills that can be used nationally to reduce dependence on petroleum. Goals for recruitment and professional development workshops for high school faculty and include at least 200 new students per year with 35% being from underrepresented groups and 40% from rural areas and with 70% completing the program. The goal of 70% of the graduates being employed within six months of graduation is implemented through research on the return on investment by companies from hiring graduates of the program.